Acquisition of a Computing Facility for Computational Chemistry

This award from the Chemistry Research Instrumentation and Facilities Program will assist the Department of Chemistry at the Wayne State University in the purchase of a Convex SPX writer, and a cluster of three HP 735 processors. This equipment will enhance research in a number of areas including the following: (1) perform numerically intensive calculations in the research areas of electronic structure theory and chemical kinetics and dynamics; (2) further develop general computer programs such as VENUS and Gaussian; and (3) educate students in the field of computational chemistry. A workstation network of fast, modern computer workstations is a new way to satisfy the computing needs of chemistry departments. Such a "computer network" also serves as a development environment for new theoretical codes and algorithms, and provides state-of-the-art graphics and visualization facilities.